Gromov Witten Invariants of Singular Spaces

Abstract

Award: DMS-0605003
Principal Investigator: Eleny-Nicoleta Ionel

The proposal is aimed at increasing understanding of the
structure of the Gromov-Witten invariants of symplectic manifolds
by combining together geometric, topological and analytical
methods. The first project aims to define the Gromov-Witten
invariants of a symplectic manifold relative a singular subspace
(with mild singularities, e.g. normal crossings) and to use
those invariants to prove a generalized symplectic sum
formula. The project uses both geometric and analytical methods
to investigate what happens to the moduli spaces of holomorphic
maps during certain kinds of natural degenerations, revealing
surprising new features but also new challenges and
complications. There are several interesting applications of this
work, one of them presented as a separate project, which involves
the idea of using a Donaldson divisor to give a simple geometric
definition of the virtual fundamental cycle. The third project
is motivated by a conjecture made by two string theorists,
R. Gopakumar and C. Vafa. The PI has been working with Thomas
Parker on a structure theorem for Gromov invariants in 6
dimensions; this would have many of the same consequences as the
Gopakumar-Vafa Conjecture, and it ties in nicely with C. Taubes
deep work on the relation between Seiberg-Witten and Gromov
invariants in 4 dimensions.

The proposed work lies at the intersection of string theory and
symplectic topology. String theory developed as a potential
candidate for unifying general relativity and particle physics.
The details of this theory have turned out to be extraordinarily
rich, and have inspired many remarkable results in
mathematics. But results in mathematics have also guided and
inspired many new discoveries in string theory. It is hoped that
this project will have the broader impact of adding momentum to
the growing interaction between mathematicians and theoretical
physicists. In particular, one of the themes running through all
the projects in this proposal is that symplectic topology can
contribute insights into string theory. The research and other
activities of the PI also have impact on the education of next
generation of mathematicians. One of the proposed projects will
involve graduate students, engaging them in cutting-edge research
early in their graduate career. The PI has also been active in
encouraging and guiding women graduate students and will continue
to strongly support young women entering mathematics.